US-Brazil Workshop on Formal Foundations of Software Systems: Tulane University, New Orleans, LA, November 1997

9727866 This project will organize and run a US-Brazil Workshop on Formal Foundations of Software Systems at Tulane University, November 9- 12, 1997. The workshop is a follow up to a similar activity held in Rio de Janeiro, Brazil in May of 1997. The workshop will further the establishment of collaborative research projects between computer scientists in Brazil and their counterparts in the United States. It will be composed of plenary sessions in two broad areas: theory of programming language design and analysis and formal tools for software verification, validation, and refinement. In addition, there will be smaller sessions for the presentation of detailed research interests, as well as interest- group planning sessions for laying out common research goals. There will be approximately twenty participants from each of Brazil and the US, selected by a Program Committee of three individuals from each country on the basis of position papers stating their research interests and aims for collaboration. One outcome of the workshop will be a report to NSF giving the results of an open discussion planned during the workshop focusing on promising areas of potential collaboration and future research, as well as ideas for promoting such collaborations in the future. The workshop is jointly sponsored by CCR and CDA at NSF and by the Brazilian counterpart agency, CNPq. ***